SBIR Phase II: System for High Efficiency Continuous Single-step Carbon Capture and Mineralization

The broader/commercial impact of this SBIR Phase II project is the ability for key industries to produce essential chemical feedstocks on-site using gas waste streams and low-cost, widely available salts. In contrast to feedstocks produced via centralized manufacturing, the on-site production offered by the proposed technology creates a cost-effective supply chain for critical chemicals at over 50% lower cost while generating revenue from byproducts. Host sites also gain a more reliable and safer feedstock supply compared to conventional centralized production and long-haul transport. Together, the proposed technology will help drive new economic activity in the U.S. by offering industrial operators a CO₂ absorption and mineralization solution that uses 70% less energy and reduces operating costs by 50%, enabling both cost savings and new revenue opportunities. It will also promote supply chain resilience—for operators and the U.S. generally—with on-site chemical production using industrial waste streams. This decreased reliance on centralized production and distribution will help buffer a range of industries that depend on chlor-alkali products against supply chain disruptions, driven by decreases in production, insufficient supplies of precursor materials, sudden changes in demand, and inadequate logistics.

This Small Business Innovation Research (SBIR) Phase II project focuses on the industrial-scale development and deployment of a solvent-based gas absorption technology that converts CO₂ in industrial gas waste streams and other low-cost, widely available inputs (i.e. a chlorinated salt) into essential chemical feedstocks, such as chlorine, hydrochloric acid, and sodium hypochlorite, and minerals including calcium carbonate and sodium carbonate. The technology has already been demonstrated in a small-scale pilot at a wastewater treatment facility, where it produced sodium hypochlorite and calcium carbonate from on-site biogas while maintaining low energy and cost inputs and achieving high rates of CO₂ absorption and mineralization. The proposed Phase II work will scale and optimize this technology for industrial-scale production. If successful, this project will address major energetic limitations in both existing CO₂ absorption technology and chlor-alkali systems to enable the on-site production of key chemical feedstocks.